Collaborative Research: Caterpillars and Parasitoids in the Eastern Andes of Ecuador

ABSTRACT
Parasitoids, which are an important component of most terrestrial
ecosystems, are parasitic animals (mostly wasps, flies, and nematodes)
that kill their hosts as part of their normal life cycle. Plants, their
insect herbivores, and the parasitoids that attack those herbivores
represent more than half of all described organisms in the world.
"Caterpillars and parasitoids in the Eastern Andes of Ecuador" consists of
an intensive plant, caterpillar, and parasitoid inventory at the Yanayacu
Biological Station (YBS) in the Ecuadorian Andes. The primary objectives
are to: 1) Collect and catalog the diverse community of caterpillars and
associated parasitoids at this site and to provide specimens for
systematics (classification of organisms and their evolutionary
relationships). 2) Disseminate this information with a searchable database
accessible to scientists and the public throughout the world. 3) Collect
baseline natural history information such as specialized associations
between plants, herbivores, and parasitoids; development rates; and other
life cycle information for both known and undescribed species. 4) Provide
the foundation for an identification key to the caterpillars of the
Ecuadorian Andes. Caterpillar collecting and rearing will take place in a
cloud forest on the eastern slope of the Andes in Napo province, Ecuador,
centered around the YBS. Collecting will be conducted by carefully
inspecting selected plant species along transects and also by
opportunistically collecting all caterpillars observed in the collecting
area. Caterpillars and parasitoids will be reared to adults. Adult
butterflies, moths, and parasitoids will be distributed to a network of
collaborating specialists for identification and for descriptions of new
species, revisions, and evolutionary studies.
The intellectual merit of the proposed activity includes
significant advances in insect classification by providing specimens to
experts as well as providing a critical inventory that can be used in the
conservation of biodiversity. Forests of the equatorial Andes are
recognized as a global hotspot of biodiversity that is being destroyed at
an alarming rate, but conservation efforts are improving. The current
survey will make an important contribution towards documenting and
describing the caterpillars and parasitoids of this threatened area, and
will increase the local value of the Andean forests by providing
scientific and economic incentives for their conservation. The ecology and
systematics that are a part of this study will also be used to address a
variety of basic and applied questions in ecology and evolutionary
biology, ranging from the evolution of unique plant-insect interactions to
the conservation and management of biodiversity. The broader impacts of
this project include direct involvement of 4 local field assistants, 3
Ecuadorian students, 3 Ecuadorian senior scientists, 1 postdoctoral
researcher, at least 12 collaborating insect specialists, and various
graduate and undergraduate students. Therefore the project strengthens
international scientific dialogue and relationships. The overall project
will include enhancements in science education and research experience
programs for minorities. Finally, the research will enhance training in
systematics to help stem the decline in expertise that is currently having
a negative impact on all disciplines in biology.